The Mentoring Project

DePaul University's S-STEM program is awarding scholarships to full-time students in the School of Computer Science, Telecommunications and Information Systems (CTI) who demonstrate both academic potential and financial need. A special effort is being made to attract academically talented students from underrepresented groups including women. Scholars are participating in a multi-level mentoring program designed to increase both the retention and graduation rates of STEM majors. The project is making an impact in undergraduate Computing education in the region.